Postdoctoral Research Fellowship in Plant Biology

9303641 Kerfeld This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from University of California at Los Angeles. Her Ph.D. research was in the area of photosynthesis with a focus on membrane biochemistry. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Todd Yeates also at University of California at Los Angeles although at a different department. The proposed research entitled "Crystallization and structure determination of the photosynthetic pigment-proteins of Chromatium" will expand the scientific experience of this Fellow into structural biology. This is an area of science not many plant biologists choose to go into, and in need of study. The proposed plan also includes extended foreign research experience at Max Planck Institute in Germany. ***